Dissertation Research: Behavioral Ecology of Human Dispersal in Massachusetts 1750-1820

This dissertation research project involves the research of an anthropology student from the University of California-Davis. The project involves studying the dispersal of individuals and families from a location in 18th and early 19th century Massachusetts. The student will trace individuals who migrated and those who did not, and test theories derived from evolutionary ecology. The data will be used to develop a model of dispersal measuring costs and benefits under a range of constraints. Specific hypotheses to be tested are that males will migrate less than females, but when they do leave they travel further than females; that dispersal is a higher risk strategy than not migrating, therefore the variance in reproductive and economic success will be greater for dispersers than non-dispersers; and that birth order effects will correlate with specific inheritance patterns. This research is important because migration is an enduring pattern of human life. Advances in our understanding of the causes and effects of human dispersal from this one particular site will help us understand the general consequences of displacement for persons and populations.